Triassic-Jurasic Boundary Events in the Northern Apennines

Recent discoveries in the northern Apennines suggest a possible link between a large impact and the termination of the latest Triassic (upper Norian or "Rhaetian") Rhaetavicula bivalve fauna. Preliminary work at three pilot sections in Tuscany and southern Liguria indicates that the occurrence of quartz with planar features is linked with at least local extinction of the Rhaetavicula assemblage and with major sedimentological changes in carbonate microfacies. Termination of Triassic foraminiferal assemblages also seems to coincide with the bivalve extinction and facies changes. This research will document "Rhaetian" through earliest Hettangian microfacies and bivalve paleoecology in the northern Apennines. The goal is a more complete stratigraphic documentation of Triassic-Jurassic sections in Tuscany and southern Liguria, to determine whether the stratigraphic linkage between impact, termination of faunal elements, and dramatic changes in carbonate microfacies is indeed a regional phenomenon. This expanded and more complete stratigraphic database on Triassic-Jurassic events in the northern Apennines will permit a more rigorous test of impact (in particular the Manicouagan impact) as a mechanism for the end-Triassic mass extinction.